Program for Attracting and Retaining Scholars in Computer and Mathematical Sciences

This project providing scholarships to ten academically talented and financially needy students majoring in biology, chemistry or physics is increasing the high technology workforce of the Appalachia region. These scholars join twenty five computer science and mathematics scholars being supported under a concurrent S-STEM project at the institution. The students are participating in interdisciplinary seminars and projects being led by faculty mentors from the five cooperating STEM departments. These activities coupled with a wide array of student support services are enabling the students after graduation to pursue advanced degrees or find employment in regional high technology companies.